Design and Prototype of an Acoustic Analysis Workstation

This is a proposal to develop a general-purpose flexible workstation for the analysis of acoustical signatures of biological and non-biological systems. The workstation will contain a variety of signal processing andclassification algorithms that can be invoked interactively. The emphasis will be on developing algorithms based on neural networks, and on gaining capability to analyze several signals simultaneously.